Acquisition of a Stable Isotope Mass Spectrometer and Elemental Analyzer for Paleoenvironmental Research at the University of Southern California

This grant will support the purchase of a Micromass Isoprime stable isotope mass spectrometer with automated elemental analyzer for research projects in paleoenvironment and paleoclimate.